Enterprise Design: Integrating Product, Process and Organization

9612327 Mistree The integration of at least three distinct design areas in manufacturing organizations will be investigated, namely, product design, manufacturing process design, and design of the organization itself. Historically these activities have been carried out in relative isolation, by separate people on different timelines. The following research questions will be addressed: (1) How can a unified and mathematically rigorous approach be implemented for designing products, manufacturing processes, and the organization itself? (2) How can the design of these interdependent entities be integrated and connected along a single design timeline? (3) How can the strategic actions of many competitive and/or collaborative players be modeled in a rigorous and quantitative design environment? (4) How can management strategy and policy be designed in the face of such competitive and collaborative forces? Answers to these questions will be built on applications of systems theory to product design and a rigorous mathematical implementation of game theory. If successful, this research will facilitate integrated product and process development of designed-to-order and made-to-order systems, and it will impact materiel acquisition in both the commercial and defense sectors. This will have the benefit of achieving more effective utilization of resources and quicker response to customer orders.